EINN2017 Conference-Students Support

This award will support early career scientists participating in the 12th Electromagnetic Interactions with Nucleons and Nuclei Conference (EINN2017), which is an international meeting focusing on forefront experimental and theoretical topics in nuclear and hadron physics. The conference is designed to encourage informal and explorative discussion. The conference will provide valuable opportunities for early career scientists to present their own research and to interact with leaders in the field.